Collaborative Research: Regularity, Stability, and Control of Poroelastic Filtrations

The project constitutes a comprehensive study of filtration partial differential equations, or PDEs, which mathematically model the physical interactions between moving fluids and deformable porous materials. Such filtration models are intended to capture subsurface flow dynamics arising in geosciences, environmental engineering, and energy extraction, and they have also been used recently in the modeling of biological tissues, organs, and biomedical devices. While the engineering analysis and control of these physical phenomena depend increasingly on predictive simulation and model-based design, the underlying mathematical theory remains incomplete. This project addresses that gap by developing foundational tools for assessing when these mathematical models are reliable, determining how their solutions behave in relation to the system's physics, and incorporating solution methods into frameworks for numerical computation and control theory. The work will advance the mathematical basis for multiphysics modeling, support progress in systems relevant to biotechnology, energy, and the environment, and contribute to reliable simulation tools for complex engineered and natural systems.

The project studies fluid-poroelastic structure interactions governed by coupled PDE systems. The models to be studied describe free fluids, deformable porous media, multilayer interactions, and interface effects arising in realistic filtration systems. Main objectives include the development of regularity theory and characterizations of spectral properties for these coupled dynamics in physically relevant regimes. These regimes include inertial, quasi-static, compressible, and incompressible cases, as well as physical geometries with boundary and interface effects. These results provide the foundation for subsequent stability analyses, control strategies, and accurate numerical simulations for realistic filtration models. In the course of fulfilling these objectives, the PIs will use semigroup methods, recently developed weak solution frameworks, and adjoint and multiplier techniques. In addition, mixed variational formulations intrinsic to the PDE interactions under study will connect the analysis of the principal governing equations with viable scientific computational methods. The project will also support graduate student training in applied PDEs and strengthen the mathematical foundations that undergird modern models of flow through and around deformable porous media.